The development of the global engineer: Effects of ethnographic investigations on students' design decisions

The goal of this research is to characterize how the content and depth of students’ ethnographic
investigations impact their design decisions, specifically as students define the problem,
develop design requirements and engineering specifications, select concepts, and develop
validation studies. Successful design solutions must be practical in the cultural context in which
they will be used. While all engineering students are not able to participate in a substantial
cultural immersion experience, a clear understanding of how these skills develop, the
challenges students face, and how design ethnography affects later stages of design will
facilitate the development and integration of these techniques into engineering design courses
as well as the development of validated metrics to evaluate proficiency in design ethnography.

The broader significance of this research is to provide undergraduate engineering students with
pedagogy, curricula, and experiences that teach them ethnographic and co-creation skills. The
result will be design solutions that better address user needs for emerging global technological
challenges. The ability of engineers to conduct ethnographic studies and use the data to make
effective design decisions will facilitate the development of innovative, practical, and
implementable solutions that address this century’s global challenges.